Effects of leptin and its Mechanisms of Action on Mammalian Trophoblast Cells

Central to an understanding of successful pregnancies is determining how the placenta
attaches itself to the uterine wall of the mother. The outer lining of the placenta contains a layer
of cells (trophoblasts), which have the property of being able to invade the uterine lining, thus
establishing the placenta. How the invasion process is initiated and regulated is uncertain. In
this project, the hypothesis that the reproductive hormone leptin stimulates invasiveness of
trophoblast cells will be investigated in trophoblast cells grown on an artificial, protein-coated
membrane. Invasive cells secrete enzymes that degrade the protein coating, and permit the cells
to move through tiny pores in the membrane; the number of cells penetrating the membrane are
counted under a microscope. The ability of leptin to stimulate invasion of trophoblasts from
placentas at early and late gestation will be examined; we predict that leptin will promote
invasion only in trophoblasts from early-stage placentas. The molecular mechanisms by which
leptin stimulates invasiveness will be determined by examining changes in intracellular signaling
molecules and gene expression induced by leptin. Placentas will be studied in species
representing the two most abundant mammalian orders. The mouse placenta does not produce
leptin, but expresses receptors for leptin and is therefore sensitive to leptin actions. The little
brown bat placenta produces and secretes leptin (as does the human placenta), and like the mouse
placenta is a target for leptin. The effects of leptin on mouse and bat placental function will be
compared. Broader impacts of this project include: 1) documentation of the importance of leptin
in establishing the placenta in diverse mammals; 2) understanding the role of leptin as a general
signal for cell migration and invasion (i.e., in other cell types where leptin is known to act and
where cells are invasive); 3) understanding gestational stage-dependent actions of hormones on
trophoblast cells; and 4) education of young scientists-in-training and outreach to include
participation of underrepresented minorities (one postdoctoral fellow, one to two graduate
students and four undergraduates students will be mentored per year on this project).